Gordon Conference on "Sensory Transduction in Microorganisms," Oxnard, California; Jan. 25-29, 1988

This is a Gordon Conference on "Sensory Transduction In Microorganisms" to be held in Oxnard, California, on January 25-29, 1988.